Computer Assisted Instruction of Undergraduate Statistics

This award provides funds to the Psychology Department at SUNY, Stony Brook to help purchase equipment to develop a computer- laboratory classroom in which students will perform statistical simulations and run experiments that can help develop conceptual understanding of the lawfulness underlying random phenomena. Experiments performed on the computers will provide concrete experiences illustrating probabilistic and statistical principles which, with traditional modes of instruction, are often only poorly understood by students lacking mathematical sophistication. The grantee is matching this award with non-Federal sources.